High Performance Internet Connections for Woods Hole Oceanographic Institution

This proposal seeks funding for an advanced network connection in order to facilitate research and education in the areas of real-time surfzone wave, current and morphology observations, impacts of mesoscale processes on biogeochemical fluxes in the North Atlantic, topics in the role of the Arctic Ocean, organic geochemistry of subsurface gas flow, and subsurface sensing and imaging systems. In addition, this award will enable new projects in the areas of a 10 Gigabit per second network on the seafloor around the Juan de Fuca plate (offshore Oregon and Washington), a Martha's Vineyard Coastal Observatory, and the temporal and spatial dependence of broadband ambient seismic noise.